I-Corps: Novel Aligned Carbon Nanotube Arrays for Radiofrequency Technologies

The broader impact/commercial potential of this I-Corps project is the development of a new semiconductor material platform based on carbon nanotubes that has enormous potential to comprehensively address challenges related to wireless radio frequency communication and connectedness. Carbon nanotubes have long been viewed as a potential next-generation semiconductor that offers large performance and integration gains for radio frequency components, particularly in switches and devices that receive and amplify weak radio frequency signals. These components are heavily used in nearly every cell phone, WiFi, internet-of-things, and military communications device. Higher signal-to-noise, more complex and efficient antenna technologies, higher operating frequency with less signal distortion than incumbent semiconductors, and better integration are all expected, which will be essential for enabling faster and more energy efficient NextG technologies. With further development, carbon nanotubes will be poised to become the semiconducting material of choice in many mainstream electronic technologies, significantly disrupting the microelectronics and radio frequency industries in the US and worldwide.

This I-Corps project is based on the development of methods for the precise deposition and alignment of semiconducting carbon nanotubes to leverage their exceptional properties for electronic applications. This carbon nanotube alignment technology overcomes persistent decades-long challenges (e.g., lack of alignment, metallic nanotube impurities, low nanotube packing densities) that have prevented the adoption of nanotubes for semiconductor radio frequency components and other electronic device applications. The alignment is achieved from an inherently scalable process that can easily be dropped into existing radio frequency semiconductor fabrication facilities and processes. Moreover, the room temperature alignment methods are fast and area-scalable (already demonstrated on 4-inch wafers), offering a simple adoption path into existing device fabrication methodologies that allows for direct transition from current materials. Aligned and dense arrays of carbon nanotubes are poised to deliver performance improvements for many different microelectronic devices that cannot be achieved by incumbent materials. One of the most promising applications is in radio frequency devices, which will be the specific market of interest in this project. Aligned nanotubes will more broadly have the potential to revolutionize semiconductor electronics by significantly improving the energy efficiency and speed of logic chips and the sensitivity of biosensors, among other applications.